SGER: A Lightweight Drive-Through Management Service for Internet-enabled Ad-Hoc Networks

As the Internet evolves into a global communication infrastructure,
it is becoming complex and ubiquitous. It is bringing together
heterogeneous collections of hosts and network devices such as
wireless mesh networks. A consequence of this ever-increasing
scale, complexity and agility is that problems of managing this
infrastructure keep getting worse. Research concentrating on
streamlining fundamental issues has shown that absence of a single
end-to-end lightweight hybrid network management solution with the
necessary levels of context awareness and adaptability, while much
desirable, has not yet been realized. Consequently, the community
is still detained from fully gaining from many of the emerging
applications of the cyber-infrastructure.

This research involves an exploratory investigation towards a
“drive through” network management platform for “on-the-fly”
Internet-enabled mobile networks. Objectives include new conceptual
approaches that couple application, and middleware designs with design
of network management services; novel theoretical models that tap into
in-network management characteristics of pervasive computing so that
missing or conflicting information gathered from multiple participating
nodes can be tolerated; augmentation of security management algorithms
with trustworthiness functionalities; theoretical schemes that examine
epistemic uncertainty by fusing imprecision, uncertainty and event
synchronization with belief theory; and extensions to archetype
platforms for supporting autonomic network management and configuration.
The intellectual merit of the research lies in presenting a first step
towards synthesis of integrated network management theoretical and design
solutions that support traditional network management protocols and
functionalities in addition to the dynamic aspects of infrastructures-less
networks. Although some risk exists, focused research can overcome the
current barriers. The broader impact of the research is that this work
will pave the way to transformative next generation network management
paradigms and tools.